Schools of the Pacific Rainfall Climate Experiment

9320686 Postawko This three year award is designed to provide support for the cooperative field project "Schools of the Pacific Rainfall Climate Experiment (SPaRCE)" involving middle school, high school and college level teachers and students from various Pacific island and atoll nations. The project is coordinated on the U.S. side by Dr. Susan Postawko, Dr. Mark Morrissey and Dr. Victoria Duca from the University of Oklahoma. At present over forty college and school sites have been identified for participation under SPaRCE. Donald Edgeworth, Principal of the Papaaroa Adventist College located in Rarotonga in the Cook Islands, is one of many foreign counterpart investigators participating in the program. Climate change is a primary concern to people of the Pacific islands due to the vulnerability of their islands to sea level and rainfall pattern changes. Numerous models of earth-atmosphere systems have been developed in an effort to diagnose and predict future climate trends. Surface rainfall observations are crucial to test and validate satellite algorithms. This program benefits the participants by allowing students to participate in a real research project, and by providing them with educational materials on climate and climate change. Data collected by participants is compiled into data sets for distribution to climate researchers. Funds in this award will be used to support a number of functions including travel by program staff for teacher training and equipment maintenance purposes, the support of a student Project Coordinator to organize and analyze incoming data, and to facilitate communications with the school network gathering rainfall data. The project plans to focus a considerable amount of activity on regions such as Guam, American Samoa and the Northern Mariana Islands, all U.S. Territories; the Republic of Palau, a U.S. Trust Territory; and the freely associated states of the Federated States of Micronesia and the Marshall Islands. On e of the initial activities included under this award will be a seminar on basic weather and climate with hands-on instruction on the use of meteorological instruments and data analysis to be conducted for SPaRCE investigators at the Annual Pacific Educational Conference to be held in Saipan in August 1994.